The High Performance Computing and Communications Visualization Project

This award supports a project under the direction of Dr. Thomas DeFanti, U of Illinois at Chicago. Faculty, staff and graduate students at the National Center for Supercomputing Applications in Champaign-Urbana and the Electronic Visualization Laboratory in Chicago have been actively working with discipline scientists to develope prototype software and user interfaces for doing remote computational science and visualization. The High Performance Computing and Communication Visualization Project (HPCCV) is a combined exhibit and theater area designed for demonstrating computing, communications and visualization. The project is a human resources and technology transfer project, one that transfers computer science methods to the field of Computational science and one that aims to aggressively drive the acceptance of this methodology by showcasing real applications. HPCCV will demonstrate what it is like for scientists and engineers to have gigaflop-per-second computing brought to the desktop on light fiber. The exhibit will be displayed at "SIGGRAPH '92 at McCormick Place in Chicago on July 28-30, 1992. High speed networking within the exhibit and to the NSFnet will tie vector and parallel supercomputers all over the nation to the SIGGRAPH 92 exhibits floor. FDDI, HiPPI and TC technology will be extensively explored and utilized. The exhibit will also be displayed at Supercomputing 92 in the fall of this year.